Travel Grant for World Congress in Bioengineering and Medical Physics, Nice, France, July 1997

9614455 Hendee This award supports travel for ten individuals to attend the World Congress in Bioengineering and Medical Physics in Nice, France in July, 1997. These individuals will be responsible for identifying research frontiers in specific areas of bioengineering, estimating future research directions, and assessing how these frontiers and directions are likely to be impacted by global information networking. A report on these issues will be generated by the attendees and furnished to the National Science Foundation. This report will serve also as a guide to planning the next World Congress in Bioengineering and Medical Physics scheduled for Chicago in the Year 2000. Each of the Nice-meeting attendees for whom travel support is requested are pivotal members of the Steering Committee for the Year 2000 World Congress, including the Congress co-presidents. The report to be prepared by the travelers would find three important uses: 1) NSF and other funding agencies would receive a report about frontiers of research in the classical areas of biomedical engineering supported by the division of Bioengineering and Environmental Systems plus a section that emphasizes how global information networking is likely to impact on the discipline in the near future; 2) the report would be placed on line on the home page for the World Congress 2000 and thus be available to all interested parties; and, 3) the information would be a key factor in planning the technical program for World Congress 2000. ***